Minority Resource Center of Excellence

The Minority Research Centers of Excellence (MRCE) program was established in FY 1987 to provide substantial resources to upgrade the research capabilities of the strongest and most productive predominantly minority institutions. This planning grant project lays the foundation for a plan that will increase the institution's quality of research and research-related training. Specifically, support for this project will permit the establishment of an MRCE advisory committee of scientists and engineers, local leaders, and industrial representatives who will assist the institution in evaluating its current and future potential for performing meritorious research during the next five years. Jackson State University will develop strategies to strengthen research in chemical physics and nuclear magnetic resonance. In addition, cooperative program with the Lawerence Laboratories at Berkeley and Livermore will be reassesed. Dual degree programs in chemistry and chemical engineering will be implemented with the California Institute of Technology at Davis and Santa Barbara. This institution has the facilities and personnel to develop a Minority Research Center of Excellence. The Foundation has supported this project because the proposed work can lead to the performance of meritorious research and will increase the participation of minorities in science and engineering.